Increased Access to High Quality NMR Spectra

A computer-interfaced Nuclear Magnetic Resonance Spectrophotometer together with a computer-controlled Spectral Bulletin Board are being used by the Chemistry Department at Adrian College to achieve the following goals: 1. Provide Adrian students with access to high quality NMR spectra for spectral interpretation, quantitative analysis of mixtures and reaction rate determinations. 2. Provide access to high quality NMR spectra for faculty and students at other schools throughout the nation. These spectra are available either by sending diskettes through the mail or by telephone access using modems to the Adrian Spectral Bulletin Board.